Academic Research Infrastructure: Acquisition of a CAVE: Breaking Research and Education Barriers by Developing 3-D Visualization CAVE Technology

9601874 Kriz, Ronald Abrams, Mark Virginia Polytechnic Institute Academic Research Infrastructure: Acquisition of a CAVE: Breaking Research and Education Barriers by Developing 3-D Visualization CAVE Technology This Academic Research Infrastructure award supports the acquisition of a virtual environment laboratory incorporating the CAVE immersive virtual reality system. The projects supported by this equipment include: 1. User interfaces using immersive VR. 2. Visualization of scientific phenomena. 3. Molecular modeling applications. 4. General research on human centered systems enabled by immersive virtual reality.